Unsteady Natural Convention in a Porous Layer Heated from the Side

This work explores the fundamentals of the mechanism of transient natural convection in a two-dimensional porous medium confined between isothermal vertical and insulated horizontal walls. Relevant internal time scales are determined governing the transient evolution of the fluid-saturated porous layer to verify the validity of the scale analysis. Numerical experiments are performed to calculate the heat transfer rate in those steady states not documented in the literature. All of the engineering heat transfer correlation will be updated.